POSE: Phase I: Ecosystem of the Applications and Libraries for Physics Simulations (ALPS)

Free and accessible open source software tools for simulation and scientific computation enhance the transparency, reproducibility, and quality of research outcomes. In physics, the software suite: Applications and Libraries for Physics Simulations (ALPS), provides an open source software ecosystem for applications in condensed matter, quantum computing, quantum information, and related fields. This project will support the scientific community by providing a maintainable and sustainable open source infrastructure for ALPS, along with community building efforts.

As part of this project, software will be re-licensed with permissible open source licenses; support infrastructure such as source code management and bug tracking, web pages, and documentation will be improved; and testing infrastructure will be established. This work on software infrastructure will allow ALPS to continue to provide software for cutting edge research on classical and quantum systems.